PACIFIC 2012 Symposium: Particle Astrophysics and Cosmology, Including Fundamental InterActions Conference to be held at University of California at Gump Station Sept. 1-7, 2012

This award will provide participant support for early career scientists and graduate students to participate in the PACIFIC 2012 Symposium. This symposium will focus on the latest developments at the interface of particle physics, astrophysics, and cosmology and on their ramifications for understanding fundamental interactions.

It will be held September 1-7, 2012 at the University of California Richard B. Gump South Pacific Research Station, located on the island of Moorea in French Polynesia.

For Broader Impacts, it has a particular focus on early career scientists and graduate students. To make the symposium more accessible to the general public the sponsors have integrated a public lecture by one of the symposium speakers into the schedule.